Past, Present and Future of CP-Violation; Los Angeles, CA

This proposal supports a mini-conference on CP violation, in honor of Roberto Peccei on the occasion of his 60th birthday, "Peccei Fest: Past, Present, and Future of CP-Violation." Topics covered in the workshop include CP-violation, axions, and heavy flavor physics---all areas where progress has been made and many open questions remain.